Workshop on Geometric Uncertainty in Motion Planning, June 15-17, 1992, USC Marine Science Center, Catalina, California

This award funds a research planning workshop on geometric uncertainty in motion planning, to be held June 15-17, 1992 at the USC Marine Science Center on Catalina Island in California. The organizers are Profs. Ken Goldberg and Ari Requicha of the University of Southern California and Matt Mason of Carnegie- Mellon University. Robotic operations in most practical settings must cope with uncertainties arising from sensor noise, control error, mechanical tolerances, and incomplete or inaccurate models of the environment. Effective motion-planning methods are critical to successful robotic implementations. Researchers from academia, government, and industry laboratories will come together to review past work, work-in-progress, and limitations and alternatives to existing theory that suggest priorities for future research.//